Mechanisms of Ion Secretion in Reptilian Salt Glands

The processes of salt secretion play a fundamental role in the maintenance of body fluid volume and concentration in the majority of vertebrate species, as well as providing the basis for the secretory activity of a variety of different glandular structures - such as the pancreas, salivary glands and tear (lacrimal) glands. Amongst the most powerful salt-secreting tissues known are the so-called "salt glands" found in certain non-mammalian vertebrates, which evolved specifically for the elimination of excess salt from the body fluids. As such, these tissues have recently become important model systems for the study of the basic processes of salt secretion. As a group, the reptiles are unique in the diversity of the salt glands they possess, both in their anatomical origin (e.g. modified lacrimal glands, nasal glands, salivary glands) and in the nature of the secretions produced (some secrete only sodium, others only potassium, and still others can switch between the two). However, the cellular processes involved in these diverse secretory activities and their control are completely unknown. The aim of this project is to describe, at the cellular level, the relevant secretory mechanisms and their control. This will not only increase the understanding of these fundamental, and physiologically important, processes but may also help us better understand the basis of certain widespread clinical conditions (e.g. cystic fibrosis, cholera etc.) known to be associated with the disruption of such salt-secreting activity in tissues.